Theoretical Astrophysics

Research will be carried out on a diverse series of topics in theoretical astrophysics. Mass Distributions in galaxies, the formation of structure in the universe, the physical properties of Active Galactic Nuclei, models of the regions surrounding these nuclei, and phenomena associated with neutron stars will be among the topics studied. The Principal Investigator is regarded as an outstanding theoretical astrophysicist.